Engineering and Computer Science Scholarships at the University of Massachusetts, Dartmouth

The project provides a unique opportunity for talented but financially
disadvantaged high school students from Southeastern Massachusetts to enter and complete
an innovative education program in computer science, civil, mechanical, electrical, and
computer engineering disciplines at the University of Massachusetts, Dartmouth (UMD).
Residents of Southeastern Massachusetts are going through a major economic transition
that resulted from almost total loss of textile industry in the United States. This region was
once one of the richest communities in the nation, but it is now home for mostly working
class population with first generation college attendees. UMD is well known for providing
one of the best undergraduate engineering programs in northeast United States. However,
it still loses the battle for attracting highly qualified students who cannot afford college
on their own.

UMD has developed a strategic plan to play a major role in the economic revival of the
region. As part of this plan, the University has established an Advanced Technology and
Manufacturing Center (ATMC). ATMC assists technology based companies in the region
to develop new products and processes and helps them commercialize university-
developed technologies. While ATMC has a staff of professionals, it also employs a good
number of student interns who function as junior engineers on its projects.

This project combines internship opportunities available at the ATMC with an NSF
supported Foundation Coalition program that has been established for freshmen and
sophomores in the College of Engineering at UMD. This combination provides a unique
educational opportunity for students with financial needs. Students admitted through
CSEMS spend their first two years in the College of Engineering's integrated math/
science/engineering curriculum and are supported by NSF scholarships. In their last
two years, they join the ATMC as interns. During their ten hours a week internship at
the ATMC, CSEMS students are not only gain invaluable experience, they also earn
internship salaries that are higher than what they receive during the first two years
work study program. With this plan, CSEMS students are trained similar to that of
medical school students who get experience in teaching hospitals.

In order to take maximum advantage of this scholarship program, we plan for a project
cycle of six years funded by a combination of NSF and private industry. During the first
three years we admit three cohorts of twenty students each. By the end of the four-year
NSF project period, each student is supported by NSF funds for the first two years of
his/her education. During the last two years, each student is supported by industry
projects at ATMC. To accomplish the objectives of this project a partnership has been
developed with eighteen of the area high schools, and a contact person has been
identified for each school. All schools have expressed their enthusiasm to identify
qualified students for this program. In addition, a set of programs and activities has
been planned to add to the exceptional features of this project.